NSF-CGP Fellowship Program: Reliable Logic Circuit Systems Designs

9600044 Lo This award supports the collaboration of Professor Jien- Chung Lo of the Department of Electrical and Computer Engineering, University of Rhode Island with Professor Eiji Fujiwara of the Department of Computer Science, Tokyo Institute of Technology. Dr. Lo is to spend three months at Tokyo Institute of Technology, with the project funding, to perform collaborated research in reliable design of logic circuits and VLSI systems. The ever decreasing circuit size, the increasing packaging density and the massive commercial demands that have been observed in the past decade call for innovative design methods to provide reliable computer usages more efficiently and more effectively. Lo and Fujiwara have both previously studied the efficient design of reliable logic circuits and VLSI systems. They have collaborated in a breakthrough work of defining the quantitative measurements of reliable designs. This work has opened several new research opportunities to be explored during this proposed visit. This proposed research visit will enhance the research in both U.S. and Japan by bringing together researchers from both countries in the area of reliable design of logic circuits and VLSI systems. Recent result and information exchange between the researchers from both countries on this subject can be expected. Furthermore, this project fulfills the objectives of transfer of scientific knowledge through international collaboration between U.S. and Japan. ***